US-Poland Computation Research on Decomposition Methods for Linear Multistage Stocastic Programming

The primary objective of this US-Poland research project between Dr. John Mulvey of Princeton University and Dr. Andrzey Ruszczynski of Warsaw University of Technology is to study computational methods for solving large-scale optimization problems that have a dynamic structure and uncertain parameters. The researchers intend to focus on decomposition-type methods which split problems into smaller parts corresponding to time stages or scenarios. They plan to employ the following methods: 1) primal and dual decomposition with the application of regularization and augmented Lagrangians and 2) special versions of barrier or interior point methods. The results of this project in linear programming are expected to open new possibilities for solving large-multistage stochastic programming problems. This project in computer science research fulfills the program objective of advancing scientific knowledge by enabling experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.